Belmont Forum - European Joint Programming Initiative Collaborative Research: Sustainable Management of Agro-ecological Resources for Tribal Societies

This award provides support to U.S. researchers participating in a project competitively selected by a 14-country initiative on global change research through the Belmont Forum and The Joint Research Programming Initiative on Agriculture, Food Security and Climate Change (FACCE-JPI). The Belmont Forum is a high level group of the world’s major and emerging funders of global environmental change research and international science councils. It aims to accelerate delivery of the international environmental research most urgently needed to remove critical barriers to sustainability by aligning and mobilizing international resources. This group developed a funding framework to support multilateral research projects that address global challenges in ways that are beyond the capacity of national or bilateral activities. Each partner country provides funding for their researchers within a consortium to alleviate the need for funds to cross international borders. This approach facilitates effective leveraging of national resources to support excellent research on topics of global relevance best tackled through a multinational approach, recognizing that global challenges need global solutions.

Working together the Belmont Forum and JPI-FACCE have provided support for research projects that seek to deliver knowledge needed for action to mitigate and adapt to detrimental environmental change and extreme hazardous events that relate to food security and land use change. This award provides support for the U.S. researchers to cooperate in consortia that consist of partners from at least three of the participating countries and that bring together natural scientists, social scientists and research users (e.g., policy makers, regulators, NGOs, communities and industry).

This project seeks to improve soil and water resource management to help increase agricultural productivity in rural areas. The project will investigate different agriculture techniques and technologies that can help make agricultural production systems that are resilient to environmental changes and provide rural farmers with tools for self-reliance. This project seeks to investigate novel ways to increase farmer access to agricultural technologies and information; to link farmers to markets and promote the efficient flow of goods and services through strengthened value chains; and to create a framework for other areas to adopt resilient solutions for food security and land use management.